CAREER: Techniques for Separations and Inclusions of Complexity Classes

Computational complexity is the study of the inherent difficulty of
computational problems. The theory considers various models of
computation, such as classical computers, probabilistic computers,
and quantum computers. For each of these, it aims to describe how many
resources are needed to compute the solution to a problem as a function
of the problem size.

The most prominent open question in complexity theory is whether the
ability to efficiently verify the validity of a candidate solution
implies the ability to efficiently compute a valid solution (assuming
one exists). The question is usually stated in terms of the
corresponding classes of computational problems: Is NP contained in P?
Lots of computational problems from virtually any discipline fall in
the class NP but are not known to be in P. Therefore, a positive answer
to the P versus NP question would have tremendous algorithmic implications.
It would also imply a way to break any public-key cryptographic system,
as the security of such systems rests on the assumption that a particular
problem in NP does not belong to P.

This research project aims to develop techniques for determining the
relationships between complexity classes like P and NP: separations
and inclusions. On the separation side, the investigators focus on
techniques that do not suffer from the known pitfalls of relativization
and natural proofs. In particular, they concentrate on indirect
diagonalization and exhibiting distinguishing properties of complete
problems. On the inclusion side, the emphasis lies on efficient
classical simulations of time and space bounded probabilistic and
quantum computations.

The educational goal consists of the development of graduate courses
on pseudo-randomness and derandomization and on quantum computing. At
the undergraduate level, the investigators plan to further the
integration of discrete structures in the core curriculum.